Determining the Influence of Household Technology on Early Childhood Development

WPC 2 B V T W #| x 10 pitch ! z N x x x , x @ ; HP LaserJet Series II (Additional) HLSEIIAD.PRS x @ 0 Z 2 5 W = 7 #| x HP LaserJet Series II (Additional) HLSEIIAD.PRS x @ 0 Z Courier 10 pitch !Presentation 16pt Bold 8.1 pitch (R) 2 J z N x x x , x @ ; j ! , ? ' a SBR 9315822 Glover This Minority Research Initiation Planning Grant proposal will seek to develop a research project to determine the extent technology such as PCs is used to help introduce, reinforce, practice or facilitate the learning of school topics? In addition, this study will seek to determine the extent technology is used for entertainment purposes versus supporting extracurricular activities such as musical training programs. There is a dearth of information regarding the affect technology has on early childhood development. Demographics are available which show a positive correlation between income, ownership of a home personal computer (PC), and the eduction of parents, among other traits, and children's school performance. Yet, very little is known regarding how home technology such as PCs or video cassette recorders (VCR) or even television (TV) is used to promote learning. This study seeks to explore the present usage of technology in American homes with children.